NSF Young Investigator

9457154 Cheeks The growth, magnetic properties and potential device applications of sputter deposited thin films will be studied. A detailed investigation of these process is crucial for monolithic integration of magnetic elements in OEICs. ***